Collaborative Research on Politics and Monetary Policy: Evidence from Individual FOMC Members' Reaction Functions

Previous studies of monetary policymaking have examined how the Federal Reserve has manipulated the supply of money or short term interest rates in response to prevailing economic conditions. Most findings support the view that the Fed attempts to stabilize business cycle fluctuations, but there is also some evidence of political influences on the Fed. For example, it is sometimes argued that monetary policies are sensitive to impending elections or to partisan pressures applied by incumbent Presidents. With just a few exceptions, investigators have based their analyses on statistical relationships between variables indicative of the stance of monetary policy (like interest rates) and variables indicative of business cycle conditions (like unemployment and inflation rates). This research will investigate political influences on the policy process within the Fed. It is important to recognize that monetary policy decisions are made by a committee, the Federal Open Market Committee (FOMC), not by a single individual. The members of that committee differ from one another in their powers, ideologies, and political loyalties. This project will study how members differ from one another in their monetary policy preferences, and how they differ in their responses to political pressures. For example, the researchers will investigate whether appointees of Democratic and Republican Presidents have systematically differing policy preferences. They will investigate whether pressure exerted by Presidents is effective, and if so, whether it is felt most keenly by appointees of his own party. They will also explore the special role of the Chairman of the Fed's Board of Governors within the FOMC, and ask if he serves as a conduit for Presidential influence. Answers to these questions are central to an understanding of monetary policy decision-making. Moreover, since the institutional arrangements defining FOMC procedures are subject to change through legislation, an understanding of current institutional arrangements is important for evaluating possible reforms. The methodology for this project is notable in several respects. First, the investigators will employ a statistical model which permits them to make inferences about the policy preferences of particular members using both economic data and data describing individual FOMC member votes on policy decisions. Second, the project is notable for its construction of an original data set based upon individuals' statements of policy preferences reported in detailed minutes of FOMC meetings prior to 1976. This compilation will yield a data set of interest to other scholars concerned with the history of monetary policymaking.